Research Initiation Award: Design of Auxiliary Chromosomes for Escherichia coli

9409603 Keasling The goals of this project are to understand how low-copy plasmids are maintained in bacteria by quantifying the cell-cycle replication patterns, the degree of segregative stabilization, and the metabolic burden of naturally-occurring replication and segregation elements. This information is to be used to design and engineer chromosome-like vehicles in applications involving complex cellular manipulations and requiring a high degree of regulation. Escherichia coli is to be used as the subject for these investigations, because metabolism and macromolecular synthesis are well understood in this organism. ***